Arctic Research Vessel Design

9522560 ALEXANDER The National Research Council Ocean Studies Board (OSB) committee is reviewing the status and needs for Arctic research platforms, the outcome of which will directly affect planning and assessment of the NSF for support of future Arctic research platforms. This project will supply funds in support of OSB deliberations primarily through the services of The Glosten Associates, Inc. ***